Shipboard Scientific Support Equipment (SSSE) 2022: University of Washington - R/V Thompson and R/V Carson

Requests are made by the University of Washington for Shipboard Scientific Support Equipment (SSSE) on R/V Thompson, a 274-foot general purpose, global class research vessel, and R/V Rachael Carson, a newly outfitted 72-foot coastal research vessel, both operated as part of the US Academic Research Fleet (ARF). In 2021, Thompson completed 296 funded days with 224 (76%) of them for NSF. For 2022, the vessel is scheduled for 283 total days with 241 (85%) days for NSF. Carson had 73 days in 2021 with 22 (30%) for NSF. For 2022, there are 131 days scheduled, 69 (53%) of which are for NSF.

With this proposal, UW provides technical descriptions and rationale for the acquisition of the following Shipboard Scientific Support Equipment:

1) Uncontaminated Seawater System on R/V Rachel Carson $41,000
2) (2) new CTD wire (0.322”) blocks for R/V Thomas G. Thompson $29,145
3) Diaphragm Pump and spares for R/V Thomas G. Thompson $10,207
4) Survey for EM2040 Multibeam System on R/V Rachel Carson $50,000
5) Starboard Aft Main Deck Crane on R/V Thomas G. Thompson $252,500
$382,852
Broader Impacts
The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 13-589). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.